NSF Young Investigator: Host-Guest Molecular Recognition in the Gas-Phase

This NSF Young Investigator Award from the Organic Dynamics Program supports the work of Professor Dearden at the University of Texas at Arlington. Intrinsic molecular recognition properties of crown ethers and related ligands for metal and molecular ions will be investigated in the gas phase using ion cyclotron resonance and tandem mass spectrometric techniques. Use will be made of the matrix-assisted laser desorption and electrospray ionization techniques. The specific areas concern (a) the identification of crown ether / alkali metal host-guest systems, (b) singly-charged alkaline earth monohalides and ammonium cations, (c) chiral host-guest systems, (d) biological ionophores, enzyme / substrate systems, and cyclodextrins. %%% With this NYI award Professor David D. Dearden's will conduct gas phase studies to determine both the intrinsic factors and the role of solvation in governing molecular recognition. By eliminating the effects arising from solvents and counterions, the interaction between hosts and guests can be probed directly. This work will make use of matrix-assisted laser desorption and electrospray ionization techniques, enabling a greatly extended range of masses detectable by mass spectrometry. This work aims to develop chemical and spectroscopic probes to determine 3-dimensional ion structures.